CAREER: Computer Graphics Techniques for Modeling and Rendering Weathered Materials

Research Component Photorealistic image synthesis is an important problem for such diverse fields as architecture, lighting and industrial design, scientific visualization, simulation systems, entertainment, and advertising. An important component that has been missing from image synthesis is the effect of weathering. Existing models of materials in computer graphics assume that the materials are in pristine condition. This research program will focus on the development of computer graphics techniques for modeling and rendering weathered materials. The research will proceed along four lines. The first part of the program involves the development of comprehensive material models; and emphasis will be placed on models that can capture the changing appearance of a given material over time. The second part of the program will entail the development of new high-level representations for complex surfaces. The third aspect of the program includes creation of techniques simulating the effects of the environment in both batch and interactive modes. The final stage involves developing techniques to render weathered materials. Educational Component The pursuit of an integrated collection of educational initiatives is an important goal. The education plan proposes the development of interactive pedagogical aids to augment traditional classroom teaching, adaptive hypertext environments for on-line student assistance, and interactive challenge- response tools for student evaluation and certification. Advanced courses in computer graphics are being developed using these tools. Mentoring and training of new researchers will integrate the research and educational activities. The principal investigator's track record of interdisciplinary work, combining expertise in architecture and computer science, will facilitate the work. ***